Research on Age-Earnings Profiles and Age Discrimination

The Age Discrimination in Employment Act was originally enacted in 1968. It was strengthened in 1979 by transferring enforcement authority to the EEOC, and in 1986 by eliminating mandatory retirement (for most workers). The Age Discrimination in Employment Act, in particular its abolition of mandatory retirement, has been criticized by some economists as impairing the formation of long-term incentive contracts in labor markets. In the current accepted model, such contracts require the institution of mandatory retirement. This critique emphasizes the point that economists' understanding of age discrimination and the Age Discrimination in Employment Act hinges critically on the underlying reasons for the observed positive relationship between age and earnings, over much of the life cycle. The proposed research will conduct numerous empirical tests of alternative explanations of this relationship, including: the human capital model; the long-term incentive-contract model; and the hypothesis that workers prefer rising wage profiles. The research explores theoretical restrictions implied by the alternative explanations, as well as data sets uniquely suited to distinguishing between them. The research draws on these empirical tests, as well as other theoretical and empirical results, to provide an economic assessment of the Age Discrimination in Employment Act.